Functional Analysis of a Brain-Specific Receptor Kinase

During the development of the nervous system, neurons undergo a number of processes, including proliferation and differentiation. The purpose of this research is to study the role of a growth factor receptor-like molecule (brain specific kinase, Bsk) in neuronal differentiation. Growth factors and their receptors are known to induce neuronal differentiation and support the survival of neurons, and Bsk has been shown to be associated with neurons in the limbic system of the brain during development. The studies will, first, investigate the timing of the production of Bsk by neurons in the limbic system, and then will attempt to modify the timing of its production by introducing into limbic system neurons an altered Bsk gene. The results of these studies will further our understanding of the development of the limbic system as well as the role of growth factors in neural development.